Presidential Young Investigator Award

This research involves studies in speech coding, image processing, and inference on stochastic processes. Recursive algorithms will be used for generation of maximum-likelihood and maximum-entropy estimates in problems for which the data are noisy and incomplete. Initially, the research applications will be predominantly in the areas of speech coding in the auditory system and image processing and spectral estimation for array processing.